IUCRC Phase I Mississippi State University: Center for Insect Biomanufacturing and Innovation (CIBI)

This Industry University Cooperative Research Center (IUCRC) Phase I Mississippi State University: Center for Insect Biomanufacturing and Innovation (CIBI) represents a first of its kind IUCRC to support the animal nutrition and human food industries that go beyond conventional protein sources currently available. At current rates of population growth, traditional agriculture will be under intense pressure to meet protein demands. Insect farming can increase the food supply for both animals and humans. In addition, sustainable and cost effective methods for remediating agricultural waste while producing high value protein is essential to the long term health of ecosystems and agriculture. Select insects can take waste, such as that produced in agro-ecosystems or urban environments, and convert it into protein and compost. Industry can utilize the knowledge created in the center to further explore the use of insect protein, with suitable regulatory approvals, as food for humans and animals. Thus, insect-farming and its innovations could represent a circular economy, which reduces land and/or water use and reduces greenhouse gas emissions. Insect farming may also relieve the stress imposed on marine and agricultural resources to generate protein for food and animal feed.

The IUCRC Phase I Mississippi State University: Center for Insect Biomanufacturing and Innovation (CIBI) comprises of three sites (Indiana University-Purdue University Indianapolis [IUPUI], Texas A&M AgriLife Research [TAMU], and Mississippi State University [MSU]), with each site specializing in a specific area of research. The sites will work collaboratively to deliver industry-desired, fundamental research into the genetics/genomics of the insect systems, evaluating the heritability of traits, and determining the genetic contributions to traits, allowing for future optimization and mass production. Through this research, new knowledge and technologies will fill critical scientific and industrial gaps related to insect farming for livestock and aquaculture production as well as insect production for human consumption. Laboratory and field-based experiments will also engage interdisciplinary expertise in microbiology, engineering, chemistry, food nutrition, physiology, and biology with cutting edge technologies. The purpose of the MSU site is to: 1) Investigate insect microbiomes to optimize and evaluate their utility for increased insect nutrition, nutrition as feed, and waste conversion; 2) Conduct experiments to determine the effects of probiotic supplementation on insect nutrition, feed nutrition, and waste conversion; 3) Use classical and molecular microbiology to develop and implement management plans for quality assurance (prevention) and control (detection) of microbial pathogens. MSU will work with the other sites to integrate research thrusts across the three sites with IUPUI and TAMU focusing on genetics, insect biology, engineering, and feed trials. All three sites will work with strains produced by industry as well as strains developed internally as a means to optimize mass production.